Molecular Topology and Development in a Photosynthetic Membrane System

The objective of this research is to further the understanding of the structure and function of the photosynthetic membrane system in the evolutionarily "primitive" prokaryote, Chloroflexus aurantiacus. The relative simplicity of its reaction center and light- harvesting antenna systems make Chloroflexus an excellent model system for the study of photosynthetic energy capture and the genetic regulation and assembly of its photosynthetic apparatus. These experiments are a continuation of previous work defining the architecture of the photosynthetic apparatus. In addition, a series of experiments applying recombinant DNA techniques will isolate genes encoding the photosynthetic apparatus in Chloroflexus. These isolated genes will be used for analyzing both the structure of the photosynthetic apparatus and its regulation of assembly. Application of recently developed genetic techniques has resulted in new approaches for studying regulation of assembly of bacterial photosynthetic membranes. Such experiments have largely confirmed the observations of earlier workers, in that assembly responds to light and oxygen levels. The exact mechanisms for this control have not yet been clarified, but it is clear that several photosynthetic components are under separate regulatory control. Current information indicates three levels of regulation. One regulatory mechanism appears unique to the Chloroflexus photosynthetic apparatus: post-translational protein processing. This mechanism may be involved in regulation of chlorosome assembly. Such a processing mechanism predicts that the several chlorosome polypeptides are encoded on a single message, translated into a single polypeptide, then cleaved. The genetic analysis proposed in this project will provide a direct test of the protein- processing hypothesis by determining the structure of the genes encoding the chlorosome polypeptides.